STTR Phase II: In-Home Rehabilitation System for Post Stroke Patients

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

This Small Business Technology Transfer (STTR) Phase II project proposes to create an in-home gait training device that allows a post-stroke patient to undergo rehabilitation with little or no assistance. Approximately 500,000 Americans survive a stroke each year. Miraculously, most stroke survivors can relearn skills, such as walking, that are lost when part of the brain is damaged. They can relearn walking most effectively if they are aided in making the correct motions by a machine or a physical therapist while attempting to walk. This training is expensive and requires the patient to make regular visits to a stroke center or qualified physical therapy center. Berkeley Bionics proposes to create a lightweight robotic exoskeleton which cradles a patient’s lower extremities and torso, and maneuvers their rehabilitating limbs for them.

The broader impacts of this research are immense. These devices could move most post-stroke rehabilitation out of the clinical setting thereby reducing labor costs dramatically. The gait training exoskeletons will be wearable, very unobtrusive, and allow patients to maneuver in the real world. Patients would therefore be able to wear such devices for most of the day, thus remaining mobile and gaining the therapeutic effects of physical therapy over the course of a day, rather than just a short session. Furthermore, creating such a device will also give clinicians an alternative to the wheelchair to assist patients who are unable to recover adequate mobility to function in their daily lives. This could potentially reduce unhealthy effects of wheelchair use for millions.